Dictionary of Tanacross Athabascan

0136113
Holton

This project will produce a lexical database and associated dictionary of Tanacross, an Athabascan language spoken in eastern interior Alaska. Tanacross is among the least documented of the Alaska Athabascan languages, and no previous lexical documentation project has been undertaken. Data will be collected both via elicitation and from recorded texts and compiled into a lexical database. This database will be used to generate a printed dictionary and will serve as the basis for an electronic version of the dictionary. The resulting dictionary and database will contribute both to our understanding of the Athabascan family of languages and to ongoing Tanacross language revitalization efforts.